Workshop on Video Games in Engineering and Computer Science Education

The project is supporting a workshop to explore the opportunities and challenges that are presented by the use of games and game-based solutions in engineering and computer science education. It addresses a critical need to assess the current state of video game use in these disciplines and identify future research directions. The workshop is bringing together a diverse group of twenty-five participants from engineering, computer science, science and instructional design who share a common interest in the use of games and related technologies in education. The workshop is working to identify challenges facing educators and researchers when it comes to the design, development, implementation, and assessment of games and game-based solutions in engineering and computer science education. The investigators are posting workshop materials on a website and preparing conference presentations and a review article for publication.